New Ideas in Particle Physics and Cosmology; Philadelphia, Pennsylvania; May 19-22, 1999

The conference "New Ideas in Particle Physics and Cosmology" will be held May 19-22, 1999 at the University of Pennsylvania. The conference will focus on very promising developments in superstring theory, which seeks to explain all of the basis forces of nature. The conference will bring together outstanding leaders in this field for an exchange of ideas which is very important to further progress.